Environmental Science: A Multi-Disciplinary Approach

This project corrects a deficiency in the instrumentation available for laboratory use in the multi-disciplinary Environmental Science program at Youngstown State University. Acquisition of an organic carbon analyzer, a particle size analyzer, two inverted microscopes and, a purge and trap apparatus for trihalomethane is used to supplement instruction related to pollutant transport in natural waters and assessment of drinking water quality. Laboratory experiments are combined with lectures, giving students a thorough understanding of key environmental problems and the most modern techniques for quantifying them. The ultimate goal is to enhance the qualifications and employment potential of chemistry, biology, and civil engineering graduates for careers in the environmental field. This award is being matched by an equal sum from the grantee.